Publication of 1983-1986 Report to International Union of Geodesy & Geophysics

This grant will support the publication by AGU of the U.S. National Report to the International Union of Geodesy and Geophysics. This collection of critical reviews in all areas of geophysical research is an important tool for specialists, for non-specialists seeking an overview, and for students. The four divisions of GEO will share the cost. Funding at the revised level is recommended.